Research Experiences for Undergraduates in Physics and Astronomy at the University of Toledo

9500433 Ellis The "Research Experiences for Undergraduates" in the Physics Department of the University of Toledo will be continued. This program places eight students each summer in the research programs of the Department, which cover a number of topics in Physics and Astronomy. The students will be given a number of opportunities to interact professionally. ***